NeTS: Small: Collaborative Research: Supporting unstructured peer-to-peer social networking

0915928 - NeTS: Small: Collaborative Research: Supporting unstructured peer-to-peer social networking

09/01/09-08/31/12

G. de Veciana, PI, U.T. Austin, and G. Kesidis, PI, Penn State

Award Abstract:

Peer-to-peer systems have seen continued growth, in terms of traffic volume, and as the architecture of choice to build new applications and network services — notable benefits lie in their distributed design leading to higher reliability and flexibility. However as users/peers increasingly become content providers, and generally conduct more of their business on the network, privacy is a critical concern.

By leveraging peers’ trust relationships through referral mechanisms based on underlying reputation systems, applications that deliver a new standard of privacy are being devised. Peer-to-peer systems that dynamically adapt, in a distributed and scalable manner, based on the outcomes of peer transactions, are being modeled and analyzed. The focus is on unstructured networks where peer-membership correlations among communities of interest can be learned to improve the search performance of reputation-biased random walks and limited-scope flooding. Content-sharing applications are being designed based that leverage this framework to incentivize cooperative behavior while enabling collaborative filtering and content pushing.

Expected results include the development analysis and testing of a new framework for privacy-preserving search for large-scale, unstructured, on-line, peer-to-peer networks. Complementary incentive mechanisms resulting in improve file sharing and promoting honest referrals will be devised. The results will be disseminated through peer-reviewed venues and, where possible, industry concerns, while data and simulation tools are made available on the web.

The efforts impact will lie in contributing new ways to improve privacy and promote more honest and efficient cooperation in large-scale on-line peer-to-peer systems, for content sharing, as well as a broader set of social networking applications.